CAREER: Interpretation of Electrodynamics for Modern Applications

Abstract

Objective: This project seeks to formulate a clear and consistent interpretation of
optical dynamics so that field interactions with matter can be confidently modeled in a
manner previously impossible. Such will enable educators to teach modern
electrodynamics with confidence and allow for the development of applications involving
electromagnetic fields. In pursuit of this goal, the specific aim of the proposed project is
to answer, within the framework of classical electrodynamics, the questions “how do we
express with confidence the dynamics of complex material systems subject to
optical/electromagnetic forces?” and “how are the various models of electromagnetic
forces and momentum interrelated?” This new interpretation will be applied to evaluate
emerging and proposed technologies.

Intellectual Merit: This research will provide the background necessary for modeling
complex systems where electromagnetic fields are used for self-assembly and in situ
control of photonic structures and will additionally benefit biology and medicine where
optical forces are currently used to probe the mechanical properties of living cells.
Applications focus on efficient and sustainable use of resources and include the use of
optical matter for fabricating nanophotonic structures for various applications.

Broader Impacts: This grant will assist in advancing technology developments in
Arkansas through a collaborative effort with other grants and contracts to build regional
centers of excellence, which will promote new innovation while encouraging small
business development. This work also proposes to improve how engineering education
treats field interactions with matter, an approach that will have a fundamental impact on
the preparedness of next generation engineers.